IDA\WG: Video Designed to Encourage Young Women in the Field of Earth Sciences

9625566 CHAN "Women in the World of Earth Sciences" will be produced as a 30 minute video aimed at youths between the ages of 10 and 18. The video will feature women in earth science careers and is meant to acquaint girls and young women with the opportunities available for them in this male-dominated physical science field. The video will convey the idea that women can enjoy and be successful in earth science careers. It will emphasize the relevance of earth science and how women can make meaningful contributions to society in a science field. The video will be professionally produced and distributed nationally.